Research in Theoretical Nuclear Physics

This project is theoretical research on heavy ion reactions. Previous work by these investigators showed that analysis of fragment momenta gives information on the temperature and density of the primary reaction products; analysis of correlations gives information on the size of the disintegrating product and of its distance from the original center of collision. It is proposed to look into the mechanics of large mass transfer (incomplete fusion), so important for nuclear chemistry, and to trace back the multistep components of the collision process to try to find a region of high density which could test the equation of state. In addition, Balantekin proposes to look at lepton production in a time dependant electromagnetic field to see if this throws any light on the anomalous charged particle emission observed in these reactions, and to look again at the restrictions that can be placed on neutrino oscillations.